QLCI: The Physics and Engineering of Practical Quantum Error Correction (PRACTIQAL)

Quantum computing holds the promise of solving a range of problems that are intractable for classical computers. Potential applications in materials science, drug design, and more could enhance quality of life and drive economic growth. However, quantum machines are much more prone to error than classical machines, and so to realize the promise of quantum computing, one must be able to detect and correct errors in these machines faster than they occur. This process of building a reliable quantum computer from flawed components is known as Quantum Error Correction (QEC). PRACTIQAL is focused on making advances at every level of the quantum computer, from the physical qubits and control electronics to the way quantum algorithms are run. The aim is to make QEC reliable and practical in laboratory experiments, and to point the way forward for industry to build reliable large-scale machines. To this end, this institute has gathered a team of computer scientists, chemists, physicists, and engineers who will work together to find synergies among the components of quantum computers so that the whole machine is optimized, rather than having individual components that work well independently but do not combine into a highly correctable machine. Moreover, the team will work to build educational pathways for both educating the broader community and nation and building the work force at many levels to ensure US companies and government agencies have access to the human resources that create large-scale quantum computers.

The aim of this Quantum Leap Challenge Institute is to advance the science and engineering of practical quantum error correction by creating a community where scientists and engineers from a wide range of disciplines can contribute to a holistic understanding of the hardware and software stack required to realize large-scale, error-corrected quantum hardware. There are two main ways in which the research of this proposed QLCI center can make much needed contributions. First, this institute aims to identify some of the key challenges associated with the scaling of error-corrected machines and find opportunities for innovation across the hardware-architecture-software stack to make QEC more practical and efficient. Second, this institute will explore and implement those algorithms and simulations that can benefit from error detection or partial error correction. In particular, it will explore the uses of erasure qubits that have recently been demonstrated in both neutral atoms and superconducting circuits. In this new paradigm, the ability to make mid-circuit measurements that reveal the location of errors as they occur offers opportunities for new QEC codes and computer architectures and opens new post-selection and error mitigation strategies for advancing quantum simulations and algorithms.